NSF Young Investigator

9357613 Marston This is a NSF Young Investigator Award which will focus on the theory of strongly interacting quantum systems, in particular the anomalous transport properties of the cuprate superconductors. Additional work will deal with the development of a comprehensive many-body theory of charge exchange at surfaces. %%% ***